Synthetic Studies in Homogeneous Catalysis and Organometallic Chemistry

This award in the Inorganic, Bioinorganic and Organometallic Chemistry Program supports research by Professor James P. Collman of the Department of Chemistry of Stanford University on `Synthetic Studies in Homogeneous Catalysis and Organometallic Chemistry` to synthesize and study metalloporphyrin complexes. The work will focus on: 1) Molecular electrochemical catalysts for the multi-electron reduction of dioxygen, 2) Equilibrium and kinetic studies of dioxygen and carbon monoxide binding to iron porphyrins, and 3) The synthesis of multiply bonded metal-metal porphyrin dimers. This research explores chemical models of oxygen-binding energy producing sites in biological cells. The model compounds produced will enhance our understanding of biological oxygen reduction, which may lead to useful electrochemical devices to generate energy by efficiently passing electrons to oxygen in the air. Oxygen-binding complexes may also have practical applications in separating oxygen from air.